Committee on the Advancement of Women in the Chemical Sciences

This award to the University of Oregon by the NSF Chemistry Division's Special Projects Office, its Chemical and Transport Systems Division and the National institute of General Medical Sciences of the NIH supports activities by the Committee on the Advancement of Women Chemists to increase the number and effectiveness of women in leadership positions in the chemical sciences. The project will conduct research to identify factors that are contributing to women's lack of progress in academia, develop a network among women in the chemical sciences workforce to share strategies for successful careers and implement a series of workshops to assist women faculty in achieving their career goals and assuming leadership positions in the profession. This project will redress gender disparity in the academic chemical sciences workforce.